Thinking with Data

The project would investigate the different cultures in social studies and mathematics classes to create a better understanding of the mathematics used for investigating real-world problems. The theory of transfer called "Preparation for Future Learning" seeks to increase the attention to argumentation in social studies class and increase focus on formal techniques in mathematics classes. Instead of teaching students to directly transfer skills from one situation to another, instruction is created to prepare students to learn in new settings and contexts. The researchers seek to increase "data literacy" which is defined as formulating questions, using appropriate representations, and developing and evaluating inferences. The researchers will examine their question of whether or not an approach applied to quantitative reasoning in social studies classes will be applied in mathematics classes and thus increases the student's data literacy. The instructional methods include a significant amount of use of modern technology. The researchers at SRI will work with Kent State Research center for educational technology and the Green Middle School in Ohio.